Paleogene Chronology and Paleoceanography: Global Correlations and Climate Changes

This project will develop a chronology for the Paleogene by integrating magnetostratigraphy, stable isotope stratigrajphy, Sr.isotope, and biostratigraphy. the stratigraphic goal is to developa Paleogene time scale, and to test biostratigraphic correlations between low and high latitudes. In addition, the work has the paleoceanographic goal of reconstructing deep.and surface.water fluctuations by makeing synoptic faunal and isotope comparisons across two climat transitions, the Paleocene/Eocene boundary and the late middle Eocene to early Oligocene.